Theoretical Nuclear Structure Physics

This work in theoretical nuclear structure physics will carry out research on an improved calculation of an effective shell-model interaction; configuration mixing within the IBM2 model to address shape coexistence, superdeformation and F- spin analog states in nuclei; and tests of fundamental symmetry violations in compound-nuclear reactions.